Presidential Young Investigator Award: Rheology of Complex Fluids

The purpose of this project is to develop an understanding of the rheology of a complex fluid via observation of its constituents' microdynamics. The optical measurements used provide noninvasive probes of the motion of the fluid constituents. Time-dependent rheooptical studies will be initiated with two general themes: to compare structures formed during flow as observed on small and large length scales, and to extend the recently developed linear dichroism and linear birefringence modulation methods. The research will involve red blood cells and liquid crystalline polymer aggregation under flow conditions. Studies of red blood cell aggregation may be of importance in suggesting corrective measures for treating pathologic venous hypertension. Optical methods provide the most promising means of investigating the little understood effects of polymer process conditions on fluid microstructure as well as the final polymer structural strength.